STAR: Testing the theoretical basis of microbe-mediated plant adaptation to drought.

Drought and other environmental stressors threaten plant populations worldwide, and accurate predictions of species responses will be key for choosing where to focus conservation and management efforts. Current predictions often overlook an important factor: the microbes that live in and around plants. These microbes can strongly influence plant health and often help plants survive stressful conditions. The reasons for these microbe-mediated benefits remain poorly understood. This project will investigate how beneficial soil fungi help plants adapt to drought. Experiments will use the most widespread native grass in the US (blue grama) and its native root fungi to understand the processes that cause microbes to benefit plants under drought, and determine when these partnerships are most likely to arise. The focal dryland ecosystem is globally relevant, covering more than 40% of Earth's land surface, supporting roughly one-third of the global population, and storing up to 50% or more of global carbon. Similar partnerships occur across many ecosystems, meaning findings will have broad relevance. This work serves the national interest by improving our ability to predict ecosystem responses to increasing drought and identifying biological approaches that increase ecosystem resilience. It is cross-disciplinary, integrating ecology, evolutionary biology, microbiology, and high-throughput biotechnology-based community analyses to develop predictive frameworks for host–microbiome interactions. Broader impacts will include student training and public outreach.

Microbial communities can strongly influence how plants respond to environmental stress, yet the mechanisms that allow microbiomes to promote plant adaptation remain poorly understood. This project will test whether theory on the evolution of cooperation, originally developed for interactions between pairs of species, can explain beneficial interactions between plants and diverse microbiomes. Using a dominant dryland grass of North America (Bouteloua gracilis), and diverse root-associated fungi common to drylands (Ascomycota), greenhouse experiments will evaluate three processes predicted to promote microbe-mediated adaptation to drought: (1) partner choice, (2) partner fidelity feedback, and (3) byproduct benefits. In (1), an experiment will test whether plants selectively reward fungal partners that improve host performance under drought and whether high microbial diversity constrains this process, as predicted by theory. In (2,), a two-phase experiment will determine whether drought-stressed plants preferentially transmit beneficial fungal communities to their offspring through seedsZ creating feedbacks that strengthen beneficial plant–microbe associations across generations. In (3), parallel experiments will test whether compounds produced by fungi to enhance their own drought tolerance also improve plant performance under drought, using both fungal inoculations and direct addition of focal compounds. By using a common experimental framework, the project can uniquely assess the relative importance of theseŹprocesses in promoting beneficial plant-microbe interactions. Results will advance understanding of host–microbiome interactions, the evolution of cooperation, and the conditions under which soil microbiomes can promote plant adaptation to environmental stress, with high potential to discover practical solutions for making drylands and other ecosystems more resilient to environmental stress (e.g., drought) by harnessing beneficial soil fungi. The project will also expand Science CORPS Southwest, a research opportunity for community college students in New Mexico and Texas, increasing entry into STEM and strengthening the future scientific workforce, including in the national priority area of biotechnology.